Collaborative Research: Enhancing MPOWIR to Build a Diverse and Inclusive Oceanography Workforce

MPOWIR (Mentoring Physical Oceanography Women to Increase Retention) is a community-led program aimed at providing mentoring to junior women and other marginalized and underrepresented genders (herein referred to women+) in physical oceanography to improve their retention in the field. Since its inception in 2007, MPOWIR has made substantial contributions to decreasing the attrition of women+ physical oceanographers. However, MPOWIR’s work is far from being done. Shifting demographics, the impact of COVID-19 on the careers of women+, and longstanding structural inequities remain challenges to retention. This project would sustain and enhance MPOWIR for another 4 years. It seeks to improve retention through a series of interrelated objectives that include: (1) providing continuity of mentoring from a woman’s+ career transition from graduate school to postdoctoral years to the early years of her permanent job, (2) providing mentorship training to MPOWIR participants, (3) fostering a sense of community in physical oceanography, (4) broadening participation in MPOWIR by providing training and professional development opportunities to all those who self-identify as physical oceanographers, and (5) engaging a cross-section of stakeholders to develop a shared vision for the next decade of MPOWIR. To meet the needs and expectations of its stakeholders, MPOWIR aims to enhance its design by incorporating a few new initiatives to provide additional professional development opportunities and support to the community of mentors and peers that MPOWIR has helped build over the past 16 years, and lead to improvement in the overall culture of the physical oceanography community.

Specifically, this funding supports the following MPOWIR activities:
1. Pattullo Conference held biannually, brings ~25 junior women+ physical oceanographers together with 12 senior physical oceanographers of all genders for a 2.5 day meeting focused on discipline-based mentoring.
2. Mentoring groups of ~6 junior and 2 senior women+ physical oceanographers meet for a monthly teleconference, for the purpose of confidential, personalized mentoring.
3. MPOWIR website serves as a repository of resources for mentoring and physical oceanography careers.
4. MPOWIR webinars and virtual discussions held semi-annually, focus on topics of particular interest to those in the early stages of a physical oceanographer’s first position, provide continued support for previous participants, expand gender neutral participation, and connect to the broader scientific community.
5. Townhalls held at large conferences, such as the Ocean Sciences Meeting, provide a forum for dissemination of information and communication with the whole oceanographic community.
6. Databases and surveys are conducted to assess the effectiveness of MPOWIR activities, determine community mentoring needs, and evaluate progress in retention.
7. NEW - Mentorship training for mentors and mentees who participate in MPOWIR.
8. NEW - Virtual Professional Development Conference held in the intervening years between Pattullo conferences with the aim of broadening participation, expanding training, and networking opportunities.
9. NEW - External program evaluation and strategic planning to assess the impact of MPOWIR and establish a shared vision with the oceanographic community for the next decade of the program.